1992 Brown/MIT Conference on Advanced Research in VLSI and Parallel Systems, March 25-27, 1992, Providence, Rhode Island

This is a unique conference which brings together academic and industrial researchers working in VLSI, architecture, CAD tools and theory. It provides a forum for interaction between people from different backgrounds, with different priorities and different perspectives. Parallel sessions have been avoided to allow better sharing of information about different research topics in VLSI. The conference is designed to contribute to a better understanding of the Nation's scientific and engineering research base.